REU Site in Bio-Psycho-Sociocultural Aspects of Behavior

This award provides funds to the Psychology Department of Clark University to continue an REU-Site project designed to build upon and make more effective a formal curriculum known as the Research Apprenticeship Program. The training model features apprenticeship, hands-on teaching for a ten week period where students learn by actively participating in all phases of a research study including: problem formulation, data collection and analysis, presentation at a professional meeting, manuscript preparation, and publication. Eight students, recruited nationally, will work with one of 19 faculty associates, whose interests collectively address biological, psychological, and sociocultural aspects of behavior. Research projects represent the full spectrum of scholarship in psychology, from neuroanatomy to literary analysis, from work with animals to studies of peoples in foreign cultures. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.